Modernization of the Seismic Processing Facility at RSMAS

9615141 Scholz This grant provides $29,524 as partial support of the costs of modernizing the seismic processing facility at RSMAS. Specifically, the bulk of NSF support will pay for one-half of the cost of acquiring PROMAX 2-D seismic processing software. This grant forms part of a much larger modernization plan that is being financed by the University of Miami and will include support of a system manger, 2 new workstations, cost-sharing for seismic processing software and a major laboratory space renovation. These renovations and equipment will replace their current and aging Solbourne server running ITA seismic processing software, presently their primary processing system, and their DEC VAX minicomputer running the DISCO seismic processing software as their backup system. Enhancement of the computational power available to these Pi's will support interesting and fundamental research projects in reflection seismology including, multi-channel seismic investigations of the structures within sediments deposited in active juvenile rift basins (i.e Lake Baikal in Russia and the East African Rift Lakes; Lake Victoria, Lake Malawi, and Lake Tanganyika), reflection profiling of the sequence stratigraphy of the Great Bahama Bank and studies of the tectonic evolution of the Cariaco Basin, Venezuela. Support of this grant has been provided by both the Division of Earth Sciences and the Division of Ocean Sciences. ***